1995 Workshop on Industrial-Strength Formal Specification Techniques WIFT'95, April 5-8, l995, Boca Raton, Florida

This award supported the 1995 Workshop on Industrial Strength Formal Specification Techniques (WIFT'95), April 5-8, l995, Boca Raton, FL, brought together software engineering professionals from around the world to report on, analyze, and synthesize experiences related to the industrial applications of formal specification techniques. Tutorials established formal methods tools, techniques and methods that are currently used in industries and government agencies. The general technical session focused on the industrial applications of formal methods. Group sessions provided highly-focused and structured forums for analyzing and synthesizing experiences related to the industrial uses of formal methods. A tools session provided demonstrations of tools supporting the building and manipulation of formal specifications.